POWRE: Molecular Characterization of Genes that are Candidates for Determinants of Neuronal Identity and Synaptic Plasticity in Drosophila

Motoneurons are the nerve cells that send signals to muscle fibers, to make them contract and produce movements. When an embryonic insect larva develops through metamorphosis into an adult with legs and wings, there are major changes in the branching and target patterns of the motoneurons. It remains unclear how this plastic change is regulated to produce the correct adult functional connections, the synapses, between nerve cells and the appropriate other nerve cells and muscles. This project uses molecular biological techniques to obtain genomic fragments from subsets of motor neurons from the fruitfly, Drosophila. These will be used to identify sequence comparisons with known genes and proteins from Drosophila and from vertebrates. Results will for the first time allow direct comparisons of the continuity between embryonic and adult motor neurons at the molecular level, and will have impact also on understanding synaptic plasticity in general. This POWRE award will enhance the research capabilities of a young woman scientist by providing training in the latest molecular biological techniques.